Stochastic Fluid-Flow Models for Control of Communication Networks

9406823 Kulkarni Emerging high-speed networks are expected to provide a wide variety of services, for example, file transfers, telephone calls, video conferencing, interactive TV, cable TV, and multimedia services. These networks will be expected to carry a mix of traffic with differing service requirements. This research project addresses important operational problems arising in such an environment. Specifically, the research project will investigate efficient operating policies for multi-media conferencing across existing networks; access control and bandwidth allocation in B-ISDN with ATM switching; and routing in high-speed data networks. The project will establish properties of optimal control policies, develop efficient numerical methods to compute optimal control policies, and use these results to synthesize simple, implementable and efficient operating policies that exhibit near-optimal performance. Stochastic fluid-flow models of high-speed communication systems are useful tools in achieving the above goals. An understanding of how to control a fluid-flow system operating in a random environment in order to optimize a given system performance measure (such as delay, loss, throughput, etc.) is critically important for proper design and operation of these systems. The proposed research will develop and analyze appropriate fluid-flow control models motivated by the above problems. A new methodology, based upon reduction to deterministic control problems, will be developed to compute the optimal operating policies. ***